The Enhancement of Chemistry and Teaching Skills of Middle School Teachers

This project will provide enhancement and professional development for approximately 40 middle school teachers from public and private school systems in the metropolitan Detroit area (Wayne, Oakland, and Macomb Counties), for a five-week summer workshop, a semester of follow-up sessions, and visitations to classrooms. Further, it proposes to make available the materials developed during the workshop to middle school teachers across the Nation through articles outlining the model and methods used in the project. One of the major objectives of this proposal will be to conduct a workshop that will improve the knowledge of chemistry of middle school teachers and also students. Modern science topics appropriate for middle school students; how chemistry concepts and principals can be applied to students' personal lives and career choices; and societal issues and technology will be the foci of the workshop. Emphasis will be placed on the development of inquiry process and problem-solving skills.